Symposium on Emerging Non-Tubular Heat Exchanger Technologies

ABSTRACT This proposal is to fund a workshop on non-tubular heat exchangers. These devices have been gaining popularity in Europe, but their penetration in American markets has been limited. The workshop will explore potential applications, advantages/disadvantages, and future research needs.